Exploring Turbulence Structures in High Speed Jets Using Advanced Optical Diagnostics

Abstract
CTS-0084362
E. Samimy, Ohio State University Research Foundation

High-speed (compressible gas) jet flows are of obvious importance in transport and military aircraft. They are also widely utilized as ejectors, blast nozzle flows, etc. Unlike their low speed counterparts, these flows have not received extensive study by the research community. One limiting issue is the availability of appropriate diagnostic techniques.

The Co-PI's bring considerable experience and insight to the planned studies of basic turbulence properties in such jet flows. The one-year funding is to permit them to address the concerns that have been raised regarding their experimental methods and the relationship of the data to the needs of their theoretical/numerical colleagues.